Robert Noyce Teacher Scholarship Program Track 1 at Binghamton University

This Noyce Track 1 project aims to serve the national need of preparing and retaining 24 highly effective middle and high school mathematics teachers to address the current shortage of public-school teachers. Additionally, this project will support their knowledge of student-centered practices and an understanding how to utilize the elements of the community to improve the academic achievement and well-being of all learners to be successful in and out of school. In addition to coursework and field-based experiences, scholars will work alongside a community school mentor (e.g., community school coordinator) one day a week, participate in workshops with other scholars and mentors, develop and implement a STEM-based afterschool program, and engage in a video-based induction program. The proposed project components will enable high-achieving prospective teachers to become secondary teachers with an expertise in student-centered and community-based approaches to the teaching and learning of mathematics.

This project at Binghamton University-State University of New York includes partnerships with four high-needs local central school districts (Harpursville, Maine Endwell, Johnson City and Whitney Point) and the Southern Tier Master Teacher Program. Through this partnership, the project aims to prepare 24 new middle and high school teachers over five years. These prospective teachers will be recruited from undergraduate majors in mathematics. The project is designed to support the development of secondary mathematics teachers that will be effective educators in high-needs school districts through a focus on student-centered instructional practices and a community school lens. Project goals include: (a) increasing the number of academically strong secondary mathematics teachers; (b) developing scholars understanding and engagement with community schools; (c) fostering scholars awareness of their own histories, biases, assumptions, and relationships to mathematics, and how these shape their students' classroom experiences and learning opportunities; (d) preparing scholars to support the teaching and learning of mathematics in high-needs schools through student-centered approaches; and (e) retaining scholars in the field of secondary mathematics education in high-needs school districts. Program evaluation will identify strengths and weaknesses of the recruitment, preparation, and retention efforts of the project with the goal of making informed improvements. Findings have the potential to highlight effective approaches for preparing and retaining highly qualified secondary mathematics committed to supporting their students to be successful as mathematics learners both in and out of the classroom. Results will be widely shared through such means as publications, professional meetings, state and national conference presentations, and locally through professional development workshops, annual reports to local superintendents, and social media posts. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced and exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.